Enhanced Synchronization of Neurons with Synaptic Plasticity: Its Origins and Its Role in Learning and Information Transport

This project seeks to uncover the fundamental aspects of the biophysics associated with synchronization in small groups of neurons, in particular to investigate the role of synaptic plasticity, widely believed to underlie memory and learning, in synchronization and information transport in neural circuits. The members of the project will investigate this question both in their biological laboratory as well as using numerical and electronic simulations of the neurons seen in the lab. Graduate students and postdoctoral researchers from Physics and Biology will work alongside the principal researchers and in their training they will learn about the biological sciences as well as the physical processes underlying the biological activity.